Theory of Electronic Transport in Disordered Materials

This is a renewal grant for theoretical study of electronic transport phenomena in disordered systems having strong electron- electron interactions. Effective field theoretic models will be developed, and studied using perturbative techniques and the renormalization group. Specifically, this research will center on two problems in superconductivity and three problems involving metal-insulator and related problems in normal systems. The issues in superconductivity are the supression of conventional superconductivity by strong disorder and the possibility of exotic superconductivity in two-dimensional electron systems. The work in normal conductors is aimed at enhancing current understanding of zero temperature phase transitions in doped semiconductors. %%% This ongoing research project will study transport of electric current in several types of materials. The unifying theme is that the interactions between the charge carriers is strong. Such materials are potentially among the brightest opportunities for new practical application, and are little understood at the present time. This project will investigate fundamental issues of this class of materials which will form much of the intellectual infrastructure for their future application.